Collaborative Research: Hardware-Specific Quantum Algorithms for Path Integral Based Quantum Molecular Simulation

Mark Tuckerman and Norah Hoffmann of New York University and Nandini Ananth of Cornell University are supported by an award from the Chemical Theory, Models and Computational Methods program to create new quantum computing algorithms capable of predicting exact quantum properties of molecules under thermal conditions that exist in typical laboratory settings. The types of calculations needed for such predictions cannot be performed on classical computers, and an important overarching goal of this work is to develop new molecular simulation algorithms for quantum computers and to demonstrate their quantum advantage. The team of investigators will simultaneously incorporate thermal and quantum effects on molecular properties using an alternative formulation of quantum theory established by the physicist, Richard Feynman, based on a “sum over histories” (also known as a “path integral”), which provides a natural, yet largely unexplored, framework for performing quantum computations at finite temperature. The team will target different emerging quantum computing architectures, including spin-based, quantum resonator-based (bosonic), and topological constructions, and they will create quantum computing strategies for studying molecules in their isolated states and under the influence of structured light, which can be exploited to tune specific molecular properties. Due to the rise of quantum science as a national priority, the team will create new educational opportunities, including internships, course materials, and summer programs, designed to train next-generation scientists to work at the interface of physics, chemistry, mathematics, and computer science, in the fascinating world quantum computing.

The fields of quantum information science and quantum computing have been identified as national priorities, and within these fields, quantum computational chemistry is one of the target application areas. It is, therefore, critical to anticipate the emergence of these technologies and embark on a program of developing the types of algorithms and computing strategies that will be able to leverage them and uncover and address the challenges in doing so. Among these challenges is the problem of performing quantum dynamical simulations of chemical systems at finite temperature, for which the Feynman path integral formulation of quantum mechanics is particularly well suited. Nevertheless, there have been few, if any, attempts to design quantum algorithms for path integral simulations of full molecular Hamiltonians. In this project, the team of Mark Tuckerman and Norah Hoffmann at New York University, Nandini Ananth at Cornell University, and their groups will address this challenge and develop quantum algorithms for path-integral based quantum dynamical simulations of molecular systems that are tailored to different types of quantum computing architectures. These algorithms will be designed for spin-based, bosonic, and topological quantum computing platforms and will be formulated for property prediction from quantum time correlation functions in isolated molecules as well as molecules in optical cavities subject to electromagnetic fields. Since quantum computing and quantum information science are interdisciplinary, sitting at interface of physics, chemistry, mathematics, and computer science, the team, whose expertise spans these areas, will create new education opportunities at this interface, including internships, course materials, and summer programs, designed to train next-generation scientists in the required interdisciplinary knowledge.